Orca Project Postdoc

This award is to support a postdoctoral associate to work in experimental computer science. The associate, Calvin P. Lin, will work with Dr. Lawrence Snyder on portable parallel programs. The research will concentrate on three areas: parallel languages, parallel algorithms, and portable scientific applications. Two parallel languages will be developed based on the Phase Abstractions programming model. This model has already been shown to produce portable parallel programs for both shared and distributed memory architectures. Additionally, important scientific algorithms, such as the Fast Fourier Transform, will be studied to identify the "algorithm of choice", an algorithm that is optimal on most architectures and competitive on all. Finally, work will continue on the development of portable scientific codes concentrating on a large molecular dynamics program.